MALDI-TOF Mass Spectrometer

A user group consisting of twenty principal investigators and their research staff at Boston Biomedical Research Institute, is requesting a MALDI- TOF mass spectrometer, the Voyager Elite BioSpectrometry Research Station from PerSeptive Biosystems. These investigators are conducting a diversity of research projects such as the investigation of protein-protein interaction and structure-function relationships of various proteins in both striated and smooth muscle and the role of Ca++-binding proteins in muscle contraction, the study of submit interactions in membrane associated energy transducing and transport systems, the design of immunotoxins and nativiral agents, the elucidation of catalytic mechanisms in enzymes, and the control of gene expression.